Climatological Atlas of the Adriatic Sea

The primary objective of this U.S.-Yugoslav cooperative research project in physical oceanography between Miroslav Gacic,of the Institute of Oceanography and Fisheries and Paul E. La Violette of the Naval Ocean Research and Development Station, is to develop the first climatological atlas of the Adriatic Sea using NOAA satellite imagery and oceanographic ship data collected by the Yugoslavs. The atlas will deepen understanding of the effects of temperature patterns, coastal weather fronts on formation of the deep waters in the eastern Mediterranean and Adriatic Seas. The investigators will jointly perform computer simulations aimed at predicting the physical behavior of these solutions. This project was approved by the U.S.-Yugoslav Joint Board on Cooperation in Science and Technology and is supported through a joint fund consisting of matching contributions from the U.S. and Yugoslav governments. The U.S. contribution is provided annually by the Department of State. No NSF funds are involved. The grants are composed principally of Yugoslav dinars and made to the principal Yugoslav institute. Funds include travel for U.S. scientists to Yugoslavia and a modest dollar allowance for Yugoslav scientists' living expenses in the U.S.